Role of Arctic in Extreme Cold Outbreaks Affecting the United States

Abstract
ATM-9905924
Walsh, John E,
University of Illinois
Title: Role of Arctic in Extreme Cold Outbreaks Affecting the United States

The planned research is aimed at understanding extreme wintertime cold outbreaks in the United States. The relative importance of physical processes in the Arctic and hemispheric-scale dynamics in the scenarios that lead to extreme cold outbreaks will be determined. Several tasks will be undertaken: (i) evaluation of trajectories of coldest airmasses in order to determine where, within the Arctic, cold airmasses originate; (ii) for three subregions of the US, the robustness of conclusions about recent decade-to-century scale variations in the frequency and intensity of extreme cold outbreaks; (iii) evaluation of global climate model simulations of cold Arctic outbreaks; (iv) assessment of impacts (economic, agricultural, social, human) of this manifestation of Arctic-midlatitude interaction; and (v) preparation of a web-based educational module on cold wave.